Solitons, Spectral Theory Graphs Educational Tools

DMS-0072700
Sergey Novikov

The main objective of the principal investigator's
research program is the unification of topology and
geometry with analysis. He is especially interesing
in specific results describing some phenomena in
real world physics where topological features play a
key role. In particular, such phenomena were found by the
principal investigators's group in the conductivity of
single crystal metals in the presence of strong magnetic
field, in the theory of nonlinear waves (solitons), and in
the theory of quantum wires (quantum mechanics on graphs).

This award will support visitors and graduate students in
the principal investigator's school of mathematics which is
primarily concerned with the unification of topology and
geometry with analysis. In this way young mathematicians can
interact with a variety of outstanding scientists. These
interactions include scientific meetings with visitors in
miniseminars and attendance at short series of lectures by
specially invited outstanding scientists. These interactions
will help attract graduate students to the subject and improve
the quality of their training at the beginning of their careers.